Active Region Formation and Magnetic Energy Dissipation

9311937 McClymont This project focuses on obtaining a theoretical understanding of the relationship between active regions and the solar dynamo in which the magnetic fields, and possibly free energy, are generated, and the dissipation of magnetic free energy in solar flares. The investigation encompasses a study of flux emergence, with the goal of determining whether a flux tube model of the sub photospheric magnetic field can explain observed characteristics of active region development, and a study of magnetic reconnection in the corona, with the aim of understanding the scaling of the reconnection rate with resistivity, the effect of gas pressure on current sheet formation, and the relationship between magnetic reconnection in an incompressible fluid and reconnection in a pressureless fluid. This research will lead to a greater understanding of the formation and evolution of active regions of the sun. ***